A Workshop on The NSF Middleware Initiative and DRM: Summer 2002, Washington DC

The University of Tennessee - Knoxville, will conduct a workshop to explore the feasibility and interest in creating a Digital Rights Management (DRM) Content Forum.

DRM refers to the management of intellectual property and distribution of digital content, and is critical to the research and education enterprise. Questions of access, fair use, collaboration, unique R&E requirements in DRM and so forth are very important to the R&E community. The NSF Middleware Initiative DRM workshop will bring together experts and stakeholders for the middleware, content management, and intellectual property management communities to address these questions and explore means of cooperatively developing DRM solutions for research and education.

The workshop has identified four deliverables;
- launch of the NMI Digital Content Forum (establishment of membership and
goals and supporting communication channels such as a listserv
- project plan for the development of the rights core metadata scheme
as the first action for this group
- final report to the NMI Project Team on workshop deliberations, & outcomes
- a report to CNI, I2, EDUCAUSE and SURA for their membership